Workshop: Travel to XXI International Congress of Entomology, August 20-26, 2000, Iguassu Falls, Brazil

Simmons
DEB-9904475

ABSTRACT

This award to the Entomological Society of America (ESA) provides partial support for US scientists to attend the XXI International Congress of Entomology August 20-26, 2000 in Iguassu Falls, Brazil. The International Congresses, which are held every four years, provide the opportunity for the international entomological research community to exchange information, consolidate advances, foster collaboration, and plan for the future. It also provides a venue for scientists and especially for graduate students to internationalize their research programs. The ESA will disburse the funds through a competitive application procedure, which will be open to all US researchers with special preference given to students and junior scientists. This award to the ESA will help ensure that US scientists continue to actively participate in the international entomological community.